PFSMETE Program: Inquiry-Based Learning in the Environmental Sciences

DGE-00-04057

This project represents the continuation of the activities, I began as a PFSMETE Fellow at Northwestern University. The project has three components: 1) continued curricular materials development, testing, and refinement for geography and environmental science education; 2) developing new tools and materials to facilitate hands-on, inquiry-based learning in the geosciences; and to promote and facilitate the pedagogical use of computer-based geographic visualization and analysis tools at the undergraduate level.